Turtle Biodiversity: Global Data For the Global Community

Abstract

DBI 9807898; Kimerling, John; Oregon State University

A prototype database and web access system of turtle biodiversity data will be built and
made available worldwide to a variety of users in the systematic, museum, conservation,
and land management communities. This prototype will be used to characterize users and
their needs and should lead to a second generation system that could be permanently
institutionalized. The prototype will be immediately useful to international groups dealing
with the declining turtles crisis. The data will consist of every known locality of all 263
freshwater turtle and tortoise species with appropriate documentation. In addition to
supporting the usual text queries, the database will have associated tools for visualization
of models of species ranges against environmental data and for analytical queries using a
global grid system. We will develop a system that can be tailored for use by anyone from
the most sophisticated user to the least. The system must be usable by both a well-
endowed museum in a developed country and the least well-equipped park ranger in a
developing country. In contrast to most web development, the system will rely on multiple
data distribution methods to support heterogeneous users, postal services, more
established web protocols, and the newest technologies may all be employed to achieve an
acceptable level of service to users. Data access and visualization tools will be usable on
the most common computer hardware and operating systems.

The three-year design will initially focus on building the prototype up to implementing the
visualization components. This initial phase includes database design, data migration,
establishing the development environment, and building the site for user interaction.
Subsequent work will add visualization tools and further refine the overall system design
based on feedback from users, to include documentation and distribution methods. These
design and implementation methods will be valuable to similar conservation efforts across
a global user community.